Terahertz Time-Domain Spectroscopy and Imaging with a Femtosecond Fiber Laser

This proposal describes a one-year activity in which the PI will conduct an investigation and build a terahertz source using a semiconductor switch excited by a femto second fiber laser at 1550 micron wavelength. The highly stable fiber laser will be of substantial benefit for THz beam generation with improved signal-to-noise ratio.